Acquisition of an Advanced Flow Cytometer

With this proposal, we request funding for the purchase of a multi-purpose state-of-the-art flow cytometer / cell sorter (Becton Dickinson FACS VantageTM Cell Sorter system or Coulter EPICS Elite ESP system) to update and expand our current multi-user Flow Cytometry Core Research Facility of the University of Nebraska-Lincoln (UNL) Center for Biotechnology. The new equipment will replace our fourteen year-old Coulter EPICS V system which now requires frequent repairs. This instrument has only a short life span remaining. The present flow cytometer is also inadequate for the needs of several investigators on the UNL campus who wish to perform bivariate chromosome analysis, multicolor fluorescence analysis, and state-of-the-art sorting of chromosomes and cells in their research endeavors. As a multipurpose facility, we are requesting accessories for a new flow cytometer which will permit: a user friendly operating system; multicolor fluorescence analysis and at least two laser capability; cell sorting in less time; computerized drop-delay setup; large-particle analysis and sorting; sorting of 1-100,000 cells into microtitier trays, onto microscope slides or filters. Importantly, the new flow cytometer system we have chosen is designed to accommodate future upgrades and applications. Even with the limitations of the present instrumentation, projects in over 25 research laboratories have benefited from the services provided by the Flow Cytometry Core Research Facility. Acquisition of a state-of-the-art instrument will better service current users and most certainly will attract additional users whose needs cannot be met with the instrument presently in use. Examples of specific research activities that would result from the availability the new instrument include: 1) Univariate and bivariate flow karyotyping and sorting of chromosomes from important plant species for the purpose of construction of chromosome-specific DNA libraries. Work is already in progress with tomato and corn chromosomes. We will actively seek collaboration from genome researchers throughout the world who want sorted chromosomes from other important plants. Our goal is to make our Flow Cytometry Core Research Facility an internationally recognized center for plant genome analysis and chromosome sorting research. 2) Flow cytometric analysis of nuclei of animals and plants (both crop plants and native plants), and cell lines from animals and plants for the determination of ploidy level and/or estimation of nuclear DNA content. 3) Immunofluorescence analysis (1-4 color) and sorting of blood cell subsets and cell lines for the expression of surface antigens, receptors or internal substances.